Regional Migration of Hypersaline Brines in Sedimentary Basins

The most widely accepted driving mechanisms for regional migration of pore fluids in sedimentary basins are sediment compaction and topography. Previous analyses indicate that both mechanisms have potential difficulties explaining some of the above geologic observations unless the fluid flow is spatially or temporally restricted. Specifically, heat content of pore fluids or flow rates or both are not sufficient for compaction driven flow to produce migration of warm pore fluids on a regional scale. Topographically-driven flow may produce warm pore fluids on a regional scale, but would result in depletion of saline components of fluids. We propose to carry out a two year study on the following aspects of regional migration of hypersaline brines: (1) develop suitable PTX equations of state for hypersaline brines under basinal conditions and examine the effects of salinity in controlling pore water flow in sedimentary basins; (2) examine various mechanism for focusing or concentrating flow of warm, saline brines, including: episodic expulsion of pore fluids, fluid flow along aquifers or faults, deflection or focusing of fluid flow by basement or surface structures and three-dimensional flow; and (3) apply these results to the regional migration of pore fluids in the Colville Basin, Alaska and the Northern Gulf Coast. The regional migration of hypersaline brines over hundreds of kilometers through sedimentary basins has been suggested as a mechanism to explain a number of important geologic observations. These include: remagnetizations found in Paleozoic carbonates of North America, clay mineral diagenesis, inclusions of high pressure, high temperature fluids, and distribution of oil, gas and Mississippi Valley-type lead-zinc deposits.